CAREER: The Relationship Between Effective Study Strategies and Student Motivation in STEM Education

Decades of research have identified study techniques that reliably produce better, longer-lasting learning. Yet students rarely use them, and when they do, they are often abandoned. This is especially costly in introductory college STEM courses, where high failure and dropout rates close the door to science and engineering careers for many students. The missing piece is motivation: how students feel about a learning technique shapes whether it works, and the technique used in turn shapes how students feel. This project investigates that two-way relationship systematically for the first time, using both laboratory experiments and real college classrooms. The project aims to move beyond a one-size-fits-all view of good study habits and toward a science of when and for whom effortful learning strategies succeed. These findings can directly inform how STEM courses are taught and how educational technology is designed.

This project investigates the reciprocal relationship between "desirable difficulties," learning conditions such as retrieval practice that increase cognitive effort and error during study but produce stronger long-term retention, and students' motivational beliefs. Motivation is characterized through multiple complementary frameworks, including Expectancy-Value Theory, Self-Determination Theory, and Goal Orientation, to capture how students' confidence, interest, perceived cost, and achievement goals interact with instructional difficulty. While prior work has established that motivational factors influence whether students adopt effortful study strategies, the reverse pathway – how the experience of difficulty itself shapes these beliefs – has not been systematically examined, nor have these two directions been studied together. Using paired laboratory and classroom experiments in introductory college chemistry, the project will quantify how retrieval practice versus restudy conditions affect students' motivational beliefs (Aim 1), and how baseline motivational profiles moderate the learning benefits of those conditions (Aim 2). A final large-scale study will use path modeling to test the full reciprocal structure simultaneously, examining whether difficulty-induced changes in motivation subsequently alter the effectiveness of future learning challenges. The findings will be made publicly available through the Open Science Framework and DataShop, a public repository for educational data, and will inform the design of adaptive educational systems capable of matching instructional difficulty to students' cognitive and motivational states.

The Faculty Early Career Development (CAREER) program is a National Science Foundation (NSF)-wide activity that supports early-career faculty who have the potential to serve as academic role models in research and education. This CAREER award is supported by the STEM Education Directorate’s Core Research (ECR: Core) program